Introduction of GC/MS Laboratory Experiences

The Department of Chemistry is purchasing a gas chromatograph/mass spectrometer (GC/MS) to improve the undergraduate chemistry laboratory program by incorporating mass spectrometry laboratory experiences within the existing framework of the laboratory courses. The project operation requires the purchase of a benchtop GC/MS suitable for teaching, routine analysis, and senior research applications. Increasingly complex laboratory utilization of the instrument is possible as the students progress from introductory organic chemistry to instrumental analysis and physical chemistry and finally to senior research applications. These laboratory experiences complement and supplement the students past laboratory experiences which have been centered around an array of basic instrumentation and a few more sophisticated items. These additional laboratory experiences better equip graduates to meet the challenges of industry and graduate programs. *